The Third Americas Conference on Differential Equations and Nonlinear Analysis to be held September 9-13, 1998, in Atlanta, Georgia

9805757
Mischaikow

This project will support the participation of researchers from
the United States at the Third Americas Conference on
Differential Equations and Nonlinear Analysis to be held at the
Georgia Institute of Technology in Atlanta, Georgia from
September 9-13, 1998. The emphasis of this meeting will be
on applications of modern dynamical systems theory to
problems in science and engineering. The objective of the
conference is to maintain and foster research interactions in
these fields between researchers from countries in the
Americas. The conference will focus on applications of
nonlinear oscillations, infinite dimensional dynamics, phase
transitions, lattice dynamics, mathematical biology, and
computational dynamics. The workshop will bring together
researchers from the U.S., Brazil, Mexico, Venezuela, Canada,
and other countries in the Americas. The program will include
invited lectures, contributed talks, and a poster session.